Review of the Federal Strategy to Address Environmental, Health, And Safety Research Needs for Engineered Nanoscale Materials

Review of the Federal Strategy to Address Environmental, Health, and Safety Research Needs for Engineered Nanoscale Materials